Symplectic Structures on Closed Manifolds

DMS-0604748
Tian-Jun Li

The PI proposes to develop new techniques and apply existing methods in gauge theory, pseudo-holomorphic curve theory
and equivariant stable homotopy theory to gain some fundamental understanding of the general
shape of closed symplectic manifolds. Four avenues of investigation
are addressed. 1) The PI, joint with M. Furuta, is developing a
comprehensive treatment of a refined invariant associated with a
proper non-linear Fredholm map, which involves a twisted
Pontrjagin-Thom construction. 2) Such a construction applied to the
Seiberg-Witten map turns out to be particular useful in the
classification of symplectic 4--manifolds with torsion symplectic
canonical classes. The PI has made progress bounding their Betti
numbers and is hoping to fully determine their homoeomorphism types. 3)
The PI searches for a simple characterization of the symplectic cone
of a K\"ahler surface. The case of geometric genus 0 has been completely settled by the PI and A. Liu. Joint with M. Usher, promising progress in the case of positive geometric genus has been made, and more is expected by exploring the
somewhat surprising interplay between symplectic forms and embedded
symplectic surfaces with negative self-intersections. 4) Joint
mainly with Y. Ruan, the PI is investigating the properties of
uniruled symplectic manifolds in dimension 6 and above, using
relative invariants, their gluing formula, and localization techniques. We also search for the criterion such that symplectic
blow-downs can be performed in dimension 6.
This project belongs to the relatively new and increasingly important
subject the PI has pursued a successful line of research. The proposed
activity raises several fundamental questions in this field and lays
out plans to answer them. It also creates original concepts in this
field and reveals connections with other fields.
This proposed activity will advance knowledge
in symplectic topology as well as other areas including differential
topology, mathematical physics and algebraic geometry.

An n manifold is a space that locally looks like the Euclidean space of dimension n. For example, the space-time universe we live in is a 4--manifold. A symplectic structure is a very basic structure that underlies almost all the equations of classical and quantum physics. A manifold equipped with a symplectic structure is called a symplectic
manifold. Studies of symplectic manifolds, such as proposed here,
will thus enhance our understandings of mathematics, physics, and
science in general.